The Calculus Companion: A Computerized Tutor and Computat- ional Aid

The main objective of this project is to create a computational environment in which calculus students will use the computer as both a tutoring device and a computational aid. The system will consist of two components: a powerful user interface to a symbolis mathematics package and graphical display routines; and tutorial modules. In this one year planning grant, a study on how the computer can be best integrated into the calculus curriculum, and a prototypical course module on the topic of integration will be completed. Students will be introduced to important techniques using symbolic computation facilities. The graphical and numerical capabilities will demonstrate several numerical integration techniques. Real world examples from several client disciplines will be used to motivate topics. University of Rhode Island will provide 40% of the project cost.